CYBERCHASE: SEASON 4

Thirteen/WNET New York will develop and produce ten new episodes for a fourth season of "Cyberchase." Now in its third production season and second year of daily PBS broadcast, "Cyberchase" has helped millions of children acquire a stronger foundation in mathematics. The new programs will enrich the series' content by emphasizing science-mathematics connections and financial literacy. Ancillary materials, outreach and a highly popular Website extend the learning and help make "Cyberchase" the sole mathematics media project available for young audiences. Plans for season four include enhancing the Website, building the inventory of multi-media outreach activities, strengthening the show's presence in after-school programs and launching a new relationship with the museum community.